Support for Cygnus 2015 June 2-4, 2015 on the Occidental College Campus in Los Angeles, CA.

This award will provide participant support for US graduate students to participate in the Cygnus 2015 International Workshop on Directional Dark Matter Detection to be held on June 2-4, 2015 at Occidental College, Los Angeles, CA. This is the 5th in the series of workshops that have allowed a growing community of directional dark matter researchers to meet, exchange ideas, set priorities for the field, discuss international scale-up possibilities and, generally, encourage growth of the field.

For Broader Impacts, this award has a particular focus on graduate students. It will allow 10 to 20 graduate students to attend this workshop. This will be an exciting and engaging activity and attending it will broaden the perspectives of this group of students as they interact directly with the more experienced scientists who are attending.